The Developmental Basis for Evolutionary Changes in the Larval Biology of Brachiopods

Invertebrate animals in most extant phyla have a complex life history
with larval and adult phases that are separated by a metamoprhic
transition. It is thought that a great deal of evolutionary change has
occurred in the context of this transition. Phylogenetic studies on
brachiopods indicate that an ancestor of two subphyla: Linguliformea and
Craniiformea gave rise to the more derived subphylum Rhynchonelliformea.
Extant members of the Linguliformea have long lived planktotrophic larvae
that eat and grow in the plankton, while extant Craniiformea have short
lived lecithotrophic larvae that do not eat. Both the Linguliformea and
Craniiformea have an excellent fossil record that extends back to the Lower
Paleozoic. By analyzing the apex of the shells of these fossils one can
infer when the mantle tissue that laid down the first shell was formed.
All of the families in these two subphyla initially had planktotrophic
larvae. The extant members of the Rhynchonelliformea all have
lecithotriophic larvae. Since this subphylum originated from an ancestor
with planktotrophic larvae, lecithotrophy is a derived state. One aim of
this proposal is to do a study of fossils in the Rhynchonelliformea that
show traces of an embryonic or larval mantle in order to trace the
evolution of larval type. The other aim of this proposal is to examine
mantle formation in the context of metamorphosis in extant brachiopods. 1)
A comparative survey will be done in order to find out to what extent
representatives of extant subphyla use the same signal transduction
mechansisms to trigger metamorphosis following exposure to an appropriate
external cue. 2) Experiments will be done where larvae are reared well past
the normal time of metamorphosis in order to see if continuing
developmental events lead to the formation of post-larval structures such
as a feeding apparatus, alimentary system and shell in the absence of
metamorphosis. 3) There is a candidate gene , brachiopod "engrailed" that
may play a role in mantle differentiation. A comparative study will be
done to examine tissue specific expression of this gene in representatives
of each subphylum.